CBET-EPSRC: Robust Free-space Driven Microtoroidal Arrays for Next Generation Biochemical Sensors

Early detection is critical for managing neurodegenerative diseases such as Alzheimer’s. Current diagnostic approaches often identify disease only after significant, irreversible damage has occurred. Existing tests are expensive, time-consuming, and mostly done in specialized laboratories, limiting their use for routine screening or early intervention. This NSF-EPSRC project will develop a compact, ultra-sensitive optical sensing technology that can detect disease-related biomarkers at extremely low concentrations. The long-term goal will be to enable rapid testing in clinical settings or even at home, when treatment and lifestyle interventions are most likely to be effective. The work builds on optical sensors capable of detecting extremely small amounts of disease-related proteins. Although these sensors are powerful, current methods of connecting them to a light source rely on fragile components that prevent their use outside the lab. Recent research has shown that light can instead be shone on the device in a specific way, removing fragile parts while maintaining excellent performance. The collaborative team will combine these optical sensors with photonic integrated circuits, which are chip-based optical systems. The resulting platform will be designed to detect Alzheimer’s-related proteins, such as amyloid beta and phosphorylated tau, and to monitor how these proteins aggregate, which is an indicator of disease. The technology could also be adapted for detecting infectious diseases, environmental contaminants, and chemical hazards. By enabling fast, accurate, and portable diagnostics, this research will improve public health, support personalized medicine, and expand access to advanced sensing technologies worldwide.

Whispering gallery mode microtoroid optical resonators offer ultra-high sensitivity and high-speed sensing with demonstrated single-molecule resolution. Conventional evanescent coupling using tapered optical fibers achieves near-unity efficiency but requires fragile, nanoscale alignment, limiting deployment outside laboratory settings. Recent work has demonstrated free-space optical (FSO) coupling to microtoroids using a single objective lens and a digital micromirror device (DMD), achieving ultra-high quality factors and signal-to-noise ratios >26 dB, as well as discrimination between healthy and mild cognitive impairment states using cerebrospinal fluid. However, DMD-based systems require bulky relay optics, preventing scalable and compact implementation. Recent advances in photonic integrated circuits (PICs) provide a path toward compact, manufacturable free-space beam control. Optical Mode Selective Interfaces (OMSIs) enable efficient mapping of free-space optical modes directly to PIC input/output couplers, allowing high-speed beam shaping and field reconstruction without the fill-factor and diffraction limitations of conventional approaches. OMSI-enabled PICs have demonstrated beam control >19 kHz and are scalable beyond 1 MHz with integrated electronics. This collaborative project will integrate microtoroid optical resonator sensing with OMSI-enabled PICs to develop a compact, adaptive FSO illumination platform. Work will focus on co-designing PIC-based illumination with microtoroid arrays for monitoring aggregation of amyloid beta and phosphorylated tau proteins, and on real-time aberration correction in microfluidic environments. The resulting platform will enable rapid, multiplexed biochemical sensing and will be extensible to medical diagnostics, environmental monitoring, and chemical and biological detection.